Exploration of Careers in Applied Physics and Engineering for Students in Grades 9, 10, and 11

A science career awareness institute at Old Dominion University will offer motivated students in grades 9, 10, and 11 the opportunity to explore a variety of careers involving applications of physics. Emphasis will be placed on careers in applied physics, engineering (civil, electrical and mechanical), physical oceanography, chemistry, astronomy, computer science and mathematics, and science education. This four-week summer residential program (with an academic year follow-up) will; (1) provide class room enrichment experiences to enhance the knowledge of participants in applied physics and (2) foster meaningful interactions between participants and practitioners in the areas of applied physics in lab activities, group discussions, etc. Groups such as women and minorities that are underrepresented in science will have the opportunity to interact with role models who are scientists and engineers. This project will enhance participant appreciation for science, provide guidance in career planning, and help participants assess their potential for success in fields involving applications of physics.